Nerve Growth Factor Effects on Ion Channel Expression

During development neuroblasts acquire a spectrum of ion channels that gives each type of neuron its special electrophysiological characteristics. Developmental signals combine with genetic programs to specify ion channel types, number, and cell-surface distribution. For some classes of neurons an important developmental signal is the polypeptide Nerve Growth Factor (NGF), a trophic agent for developing sympathetic neurons. The general aim is to use patch clamp techniques and microinjection of DNA and proteins to test the ion channels through phosphorylation pathways such as those involving cAMP, GTP- binding proteins, or phosphoinositide breakdown products. Using the PC-12 neuronal cell line in tissue culture, The investigators will compare NGF effects with those caused by artificially enhanced phosphorylation activity to determine whether they share common biochemical pathways. The specific objectives are: (1) to determine at the single channel level changes that occur in Na channels and several classes of voltage-sensitive Ca and K channel after NGF treatment and after introduction of phosphorylation-enhancing agents, phosphorylation blocking agents, or agents that promote phosphoinositide breakdown or stimulate phospholipase A2;j (2) to study the biophysical properties, pharmacology, and metabolic regulation of ion channels in the growth cone of developing neurites; and (3) to identify any characteristics of these ion channels, such as their distribution or metabolic regulation, that might give growth cones their unique behavior. The long-term goal is to gain information about the process underlying the selection, distribution, and metabolic regulation of ion channels in developing neurons. This information will likely contribute to our understanding of the molecular mechanisms underlying nervous system behavior, both in health and disease.